Mathematical Sciences: Markov Models for the Time Development of DNA Damage Repair

Time-dependent problems of interest in radiation biology will be investigated mathematically. Emphasis will be on using analytic solutions, bounds or approximations to understand numerical results and vice-versa. Detailed comparisons of the mathematical results with current published experiments will be made. The main project is to use continuous time Markov chains for modeling ionizing radiation damage to mammalian cells. The specific generators used will be modifications of those introduced in recent papers (Albright 1989; Tobias et al. 1989; Curtis 1989; Sachs et al. 1990; Hlatky et al. 1990; Hahnfeldt et al. 1991). The following biological endpoints will be considered: (A) the yield of DNA double strand breaks and other chromosome damage during irradiation; (B) the yield and variance of chromosome aberrations evolving from DNA double strand breaks via enzymatic cellular repair and misrepair processes during and after irradiation; (C) the fraction of cells clonogenically viable after irradiation. In (B) and (C) the main mathematical technique will be to use the embedded discrete time Markov chain to work out the long time asymptotic behavior in a form suitable for numerical evaluation and comparison to experiments, especially experiments on human lymphocytes. (A) mainly involves use of perturbation theory and of Perron-Frobenius theory for the eigenvalues of the generator. Many older models applicable to one of these endpoints can be regarded as deterministic approximations to the Markov models and the domain of validity of such approximations will be systematically studied. A secondary project will be to use the full, time-dependent reaction-diffusion equations with realistic reaction terms for analyzing spheroid tumor models. Mathematical modeling of ionizing radiation damage to DNA is particularly important in relating experimental results for moderate radiation doses to results at the very low doses and dose rates which are most relevant in public health concerns. Unlike most older models, the models to be used here systematically take into account fluctuations in dose and response from cell to cell. The results will contribute to a basic understanding of how chromosome aberrations such as dicentrics develop following ionizing radiation. Such understanding in turn should improve methods of biological dosimetry, of risk assessment for exposures to radioactivity, and of radiotherapy.